From Localization to Extended States in Anderson-type Models

The PI will investigate several aspects of the
localization-delocalization transition in Anderson-type random
Schr\"odinger operators. One goal is the development of new
methods to characterize energy regimes with localized wave
functions. The main focus will be on the fractional moment
(or Aizenman-Molchanov) method, which has recently been shown to
apply to continuum disordered systems. The PI and his
collaborators will further increase the applicability of this
method and use it to study several open problems such as the
localization properties of continuum surface models and the
Anderson model on continuum strips. Another objective is to study
mathematical mechanisms which show existence of
extended states in disordered media. For example, this will be
studied through one-dimensional random polymers, where an extended
state at a single energy can lead to significant electron
transport. The PI and collaborators will also develop perturbation
theoretic methods to study the high energy spectrum of
multi-dimensional Schr\"odinger operators with quasi-periodic
potentials, and, in particular, establish the existence of
extended states for this model.

The Anderson model is used to describe the conductivity properties
of disordered media. This includes crystals with imbedded or
substitutional impurities, alloys, amorphous media, the effects of
lattice fluctuations at high temperature, and quasi crystals. The
central goal is to understand the effects of disorder on electron
transport and therefore to distinguish between conductors and
insulators. The phenomena which are observed are not restricted to
quantum mechanical waves, but extend to the propagation of
acoustic, electro-magnetic and elastic waves in disordered media.
Applications in engineering include the study of random
imperfections in quantum wave guides, photonic crystals, and
anomalous transport in quasi crystals. The PI's research is aimed
at finding mathematically rigorous justifications of the Anderson
transition, stipulating that disordered media can undergo a phase
transition from insulator to conductor at sufficiently high
energy.